Quantitative Damage Assessment of Concrete by Diffuse Ultrasonic Methods

Damage to concrete structures is caused by overloading, fatigue damage,
thermal damage, or a combination of these and other factors. The repair of
damaged concrete structures costs federal, state, and local governments
billions of dollars annually. Quantitative assessment of damage using
nondestructive methods is essential for determining the structural
integrity of structures and for predicting the remaining usable life. The
proposed research will address these needs through the study of ultrasound
propagation in concrete at frequencies higher than those typically used for
concrete inspection. The combined experimental and theoretical study will
provide insight into the propagation, scattering, and dissipation of
ultrasound. The influence of overloading, fatigue damage, thermal damage,
and structural reinforcement on diffuse ultrasound propagation will also be
investigated. The proposed high frequency (> 100 kHz) approach will improve
the detection of smallscale damage by using wavelengths that are shorter
than those most widely used. The objectives of the proposed research during
the threeyear period are to:

(1) Develop a model describing the propagation, scattering, and dissipation
of ultrasound through both undamaged and damaged concrete,
(2) Corroborate the developed model experimentally, and
(3) Examine the effects of overload damage, mechanical fatigue damage, and
thermal cycling damage on diffuse ultrasound propagation.

Objectives (1) and (2) will be achieved using analysis techniques already
developed to describe wave propagation through heterogeneous media. Similar
diffuse-field techniques have been particularly successful for
characterizing polycrystalline microstructures and geophysical media.
Concrete inspection research has not yet benefited from these new
techniques. Objectives (2) and (3) will be achieved using both contact
transducer techniques and ultrasonic immersion tank methods which have been
developed for the study of diffuse ultrasound propagation.

The scientific merit of the proposed research lies in: (i) the statistical
wave propagation approach used, (ii) the highfrequency diffuse ultrasonic
methods employed, and (iii) the combination of theoretical and experimental
research which will provide experimental corroboration of the developed
theories. It is anticipated that the research will lead to new techniques
for assessing damage in concrete structures. The proposed research also
will have significant impact on the educational training of graduate and
undergraduate students in nondestructive evaluation techniques applied to
essential infrastructure materials.